Synthetic and Mechanistic Studies on the Homogeneous Catalysis of Transition Metal Complexes

The project focuses on three major efforts. First, a mechanistic study on Co-Rh mixed metal catalyst systems will be carried out to probe catalysis by Co-Rh bimetallic di- and tetranuclear complexes with regard to the highly regio- and stereoselective silylformylation and hydrosilylation of 1-alkynes. Second, applications of the silylformylation reaction to the silylformylation-annulation of alkynyl amines and silylformylation-carbocyclization will be examined as a route to functionalized heterocycles. Third, approaches to effective asymmetric induction will be studied by the use of chelation-directed regio- and stereocontrol in carbonylations. %%% With this award the Synthetic Organic Program renews support of the research of Dr. Iwao Ojima of the Department of Chemistry at the State University of New York, Stonybrook. The ultimate goal of the work is to design and develop multi-functional multi-catalyst systems that will enable the chemist to carry out multi-step synthesis in one reaction vessel in a highly organized manner. The research wiil provide new and efficient synthetic methods, and an improved understanding of both bimetallic catalysis and regio- and stereocontrol mediated by transition metal complexes.